Hurricane Inner Core and Outer Radius Structure and Maximum Potential Intensity

9616818 Gray The principal thrust of this research project is a broad-based study of the basic structure, structure changes and dynamics of the inner core of hurricanes and typhoons. In addition, the principal investigator, Dr. Gray, will explore improved methods for predicting cyclone intensity changes, processes affecting the strength and evolution of the outer region of tropical cyclones, and the relationship between the inner and outer regions of these storms. The research will employ a wide variety of observational data, from research aircraft observations to satellite and rawinsonde data, in the analyses. This project can be separated into four major topics: (1) the structure of the inner core, (2) maximum potential intensity (MPI), (3) cyclone intensity prediction, and (4) processes regulating outer core intensity and cyclone size. The second topic is one of the most hotly contested areas in tropical cyclone research today. Dr. Gray, a long time leader in this field, can be expected to make important contributions regarding the issues. Tropical cyclones represent one of the most devastating types of severe weather phenomena. Improved understanding of their evolution is key to better forecasts that would be of enormous benefit to society. ***